NATO EAST EUROPE: Spontaneously Broken Supersymmetric Theories

9354057 Bagger The idea of a fermionic Goldstone particle was initially conceived and developed in Russia 3 , and is currently under active investigation by members of the Theoretical Physics Group at Dubna. Therefore this work will clearly benefit Russian science. It will benefit American science because its impact on pure theory and applied phenomenology. In fact, because of the new colliders at SSCL and CERN, it is the ideal time to study the physics of the TeV scale. Supersymmetric searches will surely play a major role at both machines, so a model-independent description will be great importance to experimentalists as they begin to confront theory with experiment. ***